A Rotordynamic Investigation of Beam and Shell Effects for Rotor Spans with Varying Cross-Section

Modern turbo-machinery plays a major role in today's technology. Applications are numerous in the aircraft, compressor, and pump industries. The trend is toward more compact machines with lighter weight shafts and high speeds. Vibration analysis becomes indispensible as weight grows less. The transfer matrix method is very popular for these vibration analyses. The method assumes that beam theory can be used to determine rotor span stiffness and that the beam elements have constant cross-section. However, modern rotor elements violate these assumptions, having shell configurations of varying cross-section. This project incorporates these configuration effects into the transfer matrix approach. This is a fundamental advance in the vibration analysis tool and will be welcome in the rotor dynamics industries.